Instrumentation Aided Design and Evaluation of Engineered Systems for Water Supply and Pollution Control

This project establishes an upper division undergraduate course in the water quality area of civil engineering. Three major instrumentation systems, a gas chromatography system, an organic carbon analyzer and a toxicity analyzer provide the tools necessary to fully support relevant pilot-scale investigations and allow students to learn a number of skills valuable in either graduate study or professional practice. This award is being matched by an equal amount from the principal investigator's institution.